1990 Northwest Regional Developmental Biology Conference: May 10-12, 1990; Friday Harbor Laboratories, San Juan Island, Washington

Funds are requested for partial support for the 23rd Annual Meeting of the Northwest Regional Developmental Biology Conference to be held May 10-12, 1990 in the conference facilities at the Friday Harbor Laboratories of the University of Washington. The format for the meeting will consist of Plenary session, platform sessions, symposia, and poster sessions. A major purpose of the meeting is to provide an educational experience for young scientists. The small size, informal atmosphere and physical isolation promote communication among graduate students, post doctoral fellows, and faculty members. It also provides a forum for graduate students to present their work in a relatively low stress, yet scientifically rigorous, environment.